The Preordering of Reactants in Photoreactive Polymers

This research is concerned with the preordering of reactant groups in photoreactive polymer matrices. Electron donor- acceptor interactions will be used as the ordering principle in these systems and to choose poly(vinylcinnamate) as the basic polymeric structure of the study. Electron donor- and electron acceptor-substituted poly(vinylcinnamates) and some other derivatives will be prepared and their effect on photoreactivity will be observed. It is hoped that these chemical interactions will not only promote group association, but also lead to a pairing of the reaction centers of the photoreactive chromophores and, hence, to an effective increase in photoreactivity. The idea of group preordering is interesting not only for the design of crosslinkable polymers, as in photolithography, but also in new pathways; for the transport of photonic excitation, for the conduction of charge, and for the progression of chemical reaction chains throughout a solid polymer matrix. This research is being jointly funded with the Office of Naval Research.